Minimalism, Modularity and Derivations

9817569
Hornstein & Uriagereka
ABSTRACT

Chomsky calls a 'Strong Minimalist Thesis' the conjecture that language
is a perfect solution to interface conditions. The language faculty is
thought to interact with other faculties of mind, including those responsible
for articulation/perception and intentionality/conceptualization. That
interaction determines crucial properties of linguistic representations. In
turn, the linguistic system is seen as computational, and optimal in the
derivation of interface representations.

The conjecture opens an obvious research program. To begin with, it forces
us to rethink many notions that sustained the Principles and Parameters
framework. For instance, we are not allowed to arbitrarily postulate levels
of representations or give mere notational conventions a deep ontological
status. More profoundly, if the linguistic system is computational, and
optimally so, derivational dynamics, crucially sensitive to complexity,
should be responsible for a variety of effects which were previously taken
to follow from static primitive conditions.

Whether the strong minimalist thesis is tenable will depend on how well it
explains the wealth of data that previous models accounted for, and how
naturally it fits within the general enterprise of studying the human mind.
The present research tries to undertake these goals within the Linguistics
Department at the University of Maryland, as well as its Cognitive Science
and Neuroscience program.